Extensions of Global Fields with Restricted Ramification and the Fontaine-Mazur Conjecture

The investigator and his collaborators will investigate certain
"arithmetic fundamental groups," that is to say the Galois group of
a global field (finite extension of the rational numbers or the function
field of a curve over a finite field) with a specified (finite) set of
branch points. They will study, in particular, extensions in which the
filtration of the Galois group by higher ramification groups has fixed
bounded length, especially in connection with a conjecture of Fontaine and
Mazur. The proposed activity includes a computational component which
seeks to construct infinite fundamental groups with extremal properties.
Such explicit constructions give a good qualitative understanding of the
asymptotic behavior of discriminant with respect to the degree (number
fields) and genus with respect to the number of points (curves over finite
fields). The latter has applications to the efficiency of certain codes
made from number fields and function fields.

This is a proposal in number theory, the oldest branch of mathematics
where the fundamental question is that of solving polynomial equations.
Knowledge regarding solutions of polynomial equations is of fundamental
importance in cryptology and coding theory, the science of secure and
efficient transmission of data. Solutions of polynomial equations in one
unkown are equipped with a kind of algebraic symmetry and the study of
these symmetries is called "Galois theory." These symmetries are encoded
in a mathematical object called the Absolute Galois Group, which contains
such a wealth of information about equations in not just one but any
number of variables that it is sometimes known as the "Holy Grail of
Number Theory." This proposal is a theoretical and computational
investigation of certain aspects of the Absolute Galois Group.